Geometric Algorithms and Applications

As the application of computers to the physical widens, there is an increasing need for computers to deal with the physical attributes of objects, such as their geometry. The relatively young field of Computational Geometry has made impressive strides in providing an algorithmic foundation for the solution to many geometric problems in computer graphics, computer vision, robotics, and many other application areas. This project undertakes in the design and analysis of geometric algorithms in a of areas including Voronoi diagrams and Delaunay triangulations, the computation of arrangements or parts thereof, and and intersection problems. The robustness issue in geometric computing is also addressed. The goal is to extend the current methods of computational geometry to deal more effectively with problems in spaces of higher dimension (three or more) and involving objects of higher algebraic complexity(curved, as opposed to straight).